Biological Information Technology Systems - BITS: Neural Computing, Round 3

EIA 0130900-Michael Arbib-Biological Information Technology Systems-BITS: Neural Computing, Round 3

There have been two main rounds of neural computing to date, the first focusing on adaptation and self-organization, the second on compartmental modeling of the neuron. This project will catalyze a third round of neural computing: Analyzing the architecture of the primate brain to extract neural information processing principles and translate them into biologically-inspired operating systems and computer architectures. This project will focus on analyzing and further developing computational neuroscience models concerned with grasping, recognizing and executing actions, and describing those actions with language, in terms of basic information processing principles. The intention is to create a new research effort, applying the latest advances in computational neurobiology to the design of a new generation of machines. In particular, the proposed research will catalyze research and development of unusually robust, versatile, and adaptive computer architectures, that can easily adapt, correct themselves, and blend diverse styles of processing.